Quantum Optical Physics Module for an Advanced Optical Physics Lab

This project will enhance a senior laboratory in Advanced Optical Physics. This permits the institution to strengthen its undergraduate teaching laboratory capability in advanced topics in optical physics so as to produce students strongly qualified for graduate school and for technical industries. //